Pumped Spin Currents for High, Tunable Q in in Integrated RF Magnetic Devices

Objective--Metallic ferromagnets suffer from relatively high Ghz relaxation rates, with ferromagnetic resonance frequency line broadening >100 MHz. The PI will explore "active" suppression of relaxation using precessionally pumped spin currents, studied using a novel dual-frequency ferromagnetic resonance technique.

Intellectual merit--The proposed research will develop understanding of spin momentum transfer (SMT)-related effects in magnetic heterostructures, and have the potential of demonstrating a device application for spin pumping, a theoretically well developed but experimentally under-studied cousin phenomenon under SMT.

Broader Impact--The proposed research has potential as an enabling technology for high-Q, integrated Ghz frequency-domain devices using ferromagnetic thin films. Improved performance will be explored directly in a well-developed Ghz device on GaAs. Thematically related outreach to rural, urban, and suburban K-8 students, through the joint development of a hands-on demonstration exhibit of magnetic information storage technology, will be developed in partnership with the Children's Museum of Science and Technology in Troy, NY.